Innovative and Flexible Computer Lab Modules for Large Biology Courses

Joseph W. Vanable DUE 9551922 Purdue Univ Research Fdn FY1995 $ 69,000 West Lafayette, IN 47907 ILI - IP Life Sciences Title: Innovative and Flexible Computer Lab Modules for Large Biology Courses This project provides a stimulating, rigorous, and hands-on laboratory experience by constructing innovative and multifunctional computer lab modules that students in prepharmacy, agriculture, and nursing and allied health fields who require a solid foundation in biological principals would use for data acquisition and analysis, lab extensions, simulations, and delivery of instruction. These Bio LabStations have been developed in the Computer Resource Center for courses taught to biology majors. With some modification of the experiments carried out with them, they can be used for these courses, as well. These Bio LabStations replace several pieces of equipment: physiographs, oscilloscopes, pH meters, and oxygen meters, and their function far surpasses that of this conventional equipment. Although data can be collected with the conventional equipment, the Bio LabStations not only perform this function, but they also permit analysis of data, elaborate upon and extend the data collection process, simulate living systems and processes, deliver instruction, and provide for review and some testing. They have the further advantage of presenting to the students one basic apparatus to be mastered, rather than several. Not having to adjust to entirely new equipment with each new experiment should enable them to focus better on the point of each experiment.